Workshop on Fractals in Geology

Twelve geology educators are meeting for two weeks to learn about geological applications of fractal geometry. The workshops concentrate on six fractal analysis techniques that are relatively simple to learn and apply, so that the techniques may, in turn, be used in undergraduate class exercises and provide a basis for small-scale, but productive undergraduate research projects. The educators receive lectures on fractal geometry and fractal analysis techniques, and read and discuss recent papers that present geological research applications of the techniques. In addition, they also develop and carry out individual research projects applying fractal analysis in their areas of teaching and research interest, with the help of the University's Intergraph system, a state-of-the-art facility for geometric data acquisition, analysis and graphics. Mainframe or PC software versions of fractal analysis programs, along with a semiannual newsletter, support participants' applications at their home institutions. The home institutions of the faculty participants, as well as the host university, are contributing to the cost of the program at an amount approximately equal to 20% of the costs.